Purchase of a Nuclear Magnetic Resonance Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Wichita State University to acquire a 300 MHz NMR Spectrometer. This equipment will enhance research in a number of areas including the following: (1) synthesis and characterization of metacyclophanes, (2) studies on novel porphyrin-based chemosensors and donor-acceptor systems using molecular recognition approach, (3) metal complexes of nitrile- substituted trispyrazolylborates-molecular materials, (4) mechanism-based inhibitors of serine proteinase, (5) molecules for solar energy conversion, (6) micelle-forming, water-soluble diblock copolymers by group transfer polymerization, and (7) chemistry of l-ascorbic acid. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.